MIE: SUBR- A Model Institution for Excellence (MIE) Phase I: Planning

9354120 Ford Southern University and A&M College System (SUS) proposes to continue to make Southern University and A&M College at Baton Rouge (SUBR) a Model Institution for Excellence (MIE) in science, engineering, and mathematics (SEM) education and research. SUBR's quantified objectives include (a) the yearly production of 400 and 640, natural science, mathematics, and engineering (NSEM) and SEM graduates respectively, by 1998; (b) a measurable enhancement of the quality of SEM programs, infrastructure, and specially of SEM graduates; and (c) the guiding of at least 200 of its SEM graduates to the successful pursuit of SEM graduate degrees, with emphasis on the Ph.D. These outcome-objectives will be attained through process-objectives consisting of involving and getting input and support from partners that include the National Science Foundation, State and federal governments, private industry, and the precollege and Ph.D. program communities. These objectives are direct corollaries of the mission of Southern University and A&M College. This mission comprises quality instruction, research and development, and public and professional service. The development of the detailed strategic plan will address the following: (1) reassertion of the objectives; (2) the development of premises to include the reassessment of internal and external factors and trends; (3) the decisions or the selection of strategies; (4) the details of the implementation, with time table and measures of success; and (5) the monitoring, evaluation, and related adjustments and updating. Existing plans, reports, and the content of the literature will constitute key instruments.